Slab Geometry and Mountain Building Processes in the Southern Andes

This research involves the study, by means of PASSCAL portable
broadband seismometers in Argentina and Chile, of the structure
beneath the south central Andes where a major change in subducting
slab geometry occurs. The research will be done in conjunction
with research institutes from Chile, Argentina, France, and
Germany. At approximately 33.3 degrees South, the subducting Nazca
slab changes from a horizontal slab geometry without any active
volcanism to the north, to a 30-degree dipping slab with an active
volcanic arc to the south. This north-south change in slab dip is
one of the most dramatic bends or warps in a Wadati-Benioff zone
geometry anywhere globally. At 31 degrees South, the flattened
slab extends 300 km to the east before resuming its descent into
the mantle. This segment has high elevations and large amounts of
tectonic shortening. Across the dipping slab segment, the
elevation decreases, as does the amount of tectonic shortening.
Two PASSCAL transects will be deployed: one near 30.5 degrees South
above the horizontal slab segment and one at 36 degrees South above
the dipping slab segment. The seismic data will be gathered from
natural earthquakes and inverted to answer questions involving the
structure of the subducting slab across the transition, surrounding
mantle structure, mountain building, and earthquake generation
processes.